Engineering Research Experience for Women and Minority Undergraduates

An "Engineering Research Experience for Undergraduate" (REU) Site for ten (10) women and minority students is established. The REU program will be conducted in conjunction with an ongoing Undergraduate Summer Research Program, sponsored by the Texas engineering Experiment Station for the past eight years, and the Minority Engineering Program. Students for the REU Program will be selected from institutions that have predominantly minority enrollments including the University of Texas at El Paso, University of Texas at San Antonio, Pan American University, University of Puerto Rico, and Prairie View A&m as well as Texas A&M, with as least half from other institutions. Individual research projects will be undertaken by the undergraduate students in conjunction with on-going research programs, and regular activities. Research projects have included high turbulence intensities on flow, fabrication of thin, silicon membranes, simulation for electronic manufacturing, and inductive coupled coils for spectroscopy and magnetic resonance imaging.